Alloy Analysis Using Glow Discharge Spectrometry and Total Oxidation Systems In Engineering Technology Programs

This project will greatly enhance our ability to teach about the importance of accurate chemistry reports and their use in manufacturing and quality engineering. Accurate chemistry reports are needed for on-site alloy preparation, on-site heat treatment activities, stress/strain diagram interpretation, metallographic sample analysis, material removal and horsepower calculations, and quality assurance report preparation. These subjects are covered more than once in at least four of our courses. The courses identified are required for all Engineering and Industrial Technology majors in the department. Specifically, the project will use a 24 element capable Glow Discharge Emissions Spectrometer and a Carbon/Sulfur Determinator system to accurately determine all alloying elements in the aluminum, copper base, and ferrous based alloys. This will allow students to instantly analyze and mathematically adjust furnace heats in the foundry, select appropriate phase diagrams and time/temperature/ transformation diagrams for various heat treatment activities and obtain hard copy print-outs of chemistry reports that would typically be used for quality assurance reports.